Curation of Archaeological Collections from the Lower Columbia River Region

With National Science Foundation support, Dr. Stein and colleagues will curate large archeological collections which derive from sites in the Lower Columbia River area of Washington State. The region from which the controlled excavations were conducted is now inundated as the result of dam construction and the collections therefore constitute a unique resource. The materials include not only lithic artifacts, but also faunal remains and soil samples which permit environmental reconstruction. The material is presently stored in cardboard trays and cardboard curation boxes. The trays are open and bending under the weight of their own contents. Within trays artifacts are piled in open containers with large numbers of lithics stored together. Materials, including excavation notes are jumbled together. Dr. Stein and colleagues will take these materials from their paper and cardboard containers, clean them, place them in archival-quality plastic bags with labels, catalog them using a computer cataloging program (ARGUS) and place them in enameled- metal specimen cabinets. Federal funds will compliment those provided by the University of Washington. This project is important for several reasons. Native American groups in the Northwest region reached a level of cultural complexity unique among hunting and gathering peoples and anthropologists wish to understand how societies could be sustained on such a subsistence base. It is also clear that interaction occurred between coastal and inland groups but the intensity and effect of these contacts are not known. The Lower Columbia River sites provide crucial data to answer this question. These collections constitute not only a part of America's cultural heritage but also important scientific data which are virtually unusable at the present time. This project will help to remedy this situation.